Analysis of Decadal Variability in the Pacific (CLIVAR/PBECS) Renewal to NSF OCE97-11265)

Miller 0082543
Using ocean models, coupled ocean-atmosphere models, and observations the investigators will address scientific questions involving (1) the specific feedback processes in the Latif-Barnett decadal coupled mode and its consistency with observations; (2) the fate of subducted temperature and spiciness anomalies traveling equatorward in the thermocline using a very weakly diffusive ocean model; (3) the adequacy of observations that sample anomalous subduction in the Northern and Southern hemispheres; (4) the baseline shapes and levels of spiciness spectra in coupled models; and (5) the specific tropical feedback processes in the decadal spiciness mode and its consistency with observations.